Structure and Rheology of Concentrated Dispersions: Statistical Mechanical Theory and Light Scattering Measurements

The proposed research is a combined theoretical and experimental investigation of the structural and rheological properties of colloidal dispersions. The effective medium properties are incorporated in a statistical theory to evaluate pair of particle interactions. The calculation of the structure and rheological properties for a variety of systems is proposed. The theory will be tested via light scattering measurements, for mixtures of hard spheres, sticky spheres and spheres bearing grafted polymer layers. The statistical mechanics approach can be regarded as an alternative or complement to molecular dynamics or Stokesian simulations, covering dilute and medium concentrated dispersions. The suggested theory should be valuable for the fundamental information generated, as well as the insight gained for guiding and correlating experiments for colloidal dispersions of interest in automotive and architectural coatings, ceramic particles processed as dispersions, cosmetics, and printing inks.